Spectroscopic Characterization of Nickel Metalloenzymes

Nickel is known to be at the active site of four distinct types of metalloenzyes urease, hydrogenase, methyl-coenzyme M reductase and carbon monoxide oxidoreductase. How and why nature uses nickel to catalyze such widely different reactions as the hydrolysis of urea, the oxidation of H2, the reductive desulfurization of methyl thioether, and the interconversion of CO and CO2 are fascinating questions. However, at present the coordination environment and role of nickel in the catalytic mechanisms are not well characterized in any of these enzymes. The objectives of this research proposal are the characterization of the structural, electronic, and magnetic properties of the Ni centers at the active sites of hydrogenase, urease, methyl coenzyme-M reductase, and Ni- substituted Zn enzymes such as liver alcohol dehydrogenase, carboxypeptidase and carbonic anhydrase. The approach is spectroscopic involving the combination of absorption, variable- temperature magnetic and natural circular dichroism, resonance Raman and electron paramagnetic resonance studies of the metalloenzymes, together with parallel investigations of well- characterized Ni-substituted proteins and appropriate synthetic complexes.//